Multimedia Science Learning Laboratory

9451753 Kopec The project is developing a multimedia laboratory for students in several introductory science classes. These laboratories are being used to provide tutorial assistance and to provide simulated laboratory experience for these classes. The project is being accomplished in two phases. In the first phase, commercially available software is being used for the tutorials and simulated laboratories. In the second phase, tutorials and laboratories are being developed to more completely meet the needs of the students in these courses.